TRP: The Factory as a Learning Laboratory; A Practice BasedMasters Degree Program for Defense Industry Scientists and Engineers

9413091 DuVall Building on their existing successful partnership, East Carolina University and Black and Decker will use industrial sites and research in lieu of traditional classrooms and graduate theses for a masters degree. One hundred twenty people from defense industry and military sites in Maryland and North Carolina will be able to earn a Master of Science in Industrial Technology through research projects and interactive compressed video courses at six Black and Decker sites through research projects and interactive video courses.